Travel Support for ICIAM 2003

The Society for Industrial and Applied Mathematics (SIAM) will to administer a travel grant program for approximately 50-60 U.S. mathematical and computational scientists and graduate students to attend
the International Conference on Industrial and Applied Mathematics (ICIAM03), to be held on July 7-11, 2003 in Sydney, Australia. SIAM will partially support the travel and subsistence of U.S. participants.